CAREER: Theory and Application of Reflective Microring Resonators

Objective: The objectives of this program are to characterize, model, and utilize reflective microring reflectors. The PI proposes engineering novel device functionality by integrating a Bragg reflector in a microring resonator. The microring amplifies grating reflection, creating a compact mirror with high reflectivity, narrow linewidth, and no side lobe ripple. These benefits would reduce channel crosstalk and potentially result in lower power, higher data rate communication systems.

Intellectual Merit: The intellectual merit is that the research will advance scientific understanding of the device and demonstrate its potential as a fundamental element to the photonics community. The PI proposes to leverage his preliminary results in device theory, experience in lasers, sensors, and nanofabrication, and experimental capabilities and resources. The research is potentially transformative as it may unlock new lines of research (new devices and models) and enable diverse applications (interferometry, metrology, RF photonics, and communications). Two specific applications will be explored: as cavities for on-chip absorption spectroscopy and as mirrors for tunable lasers.

Broader Impact: The broader impacts will be to create novel devices for next generation communications and consumer electronics. Research and teaching will be integrated through the development of two courses: Principles of Experimental Research? and Modeling of Photonic Devices. Recruitment, retention, and participation of students from underrepresented groups will be addressed through mentoring, REU internships, and a new electrical engineering summer camp for 10th-12th grade girls. Results from both research and teaching will be published to enhance the current understanding of reflective microring devices and engineering education/outreach methodologies.